Mathematical Investigations of Nonlinear Free Boundary Problems in Stokes Flow

DMS-9803167

Mathematical Investigation of Nonlinear Free Boundary Problems in
Stokes Flow

Investigators: Michael Brenner and Darren Crowdy

PROJECT SUMMARY

This proposal outlines a mathematical investigation of a class of free
boundary problems for slow viscous (Stokes) fluid regions in both two
and three dimensions. The proposal is motivated by recent results on a
remarkable mathematical structure underlying a fundamental problem in
the study of two-dimensional Stokes flow. Crowdy and Tanveer have
devised a new global theoretical approach to the problem of 2D Stokes
flow which resulted in the identification of an infinity of conserved
quantities associated with a large class of exact solutions for a
simply-connected fluid region, and the discovery of the first-known
exact solutions for doubly-connected fluid regions. These significant
mathematical results will be developed in various directions. Of
primary interest is the important and highly non-trivial question of
generalization to three-dimensional Stokes flow. Preliminary numerical
studies by Nie and Tanveer have shown that axisymmetric (3D) Stokes
bubble exhibits very similar qualitative behavior to its
two-dimensional analogue (e.g. formation of near-cusps and topological
changes). The results on two-dimensional Stokes flow will be
generalized in various directions. Exact solutions in regions of
connectivity greater than two is of great interest. Moreover,
additional physical factors will be studied including electrostatic
(electric fields) and thermo-capillary effects.

The mathematical problems to be studied are of great physical interest
and application. The solutions serve as useful models in the physical
process of viscous sintering. Sintering is a term broadly referring to
the consolidation of an assemblage of particles in which the mass
transport is driven by surface tension and there exists a huge
literature on the subject spanning many disciplines from materials
science to environmental engineering. Understanding such sintering
processes is very important, for example, in fiber-optic and
opto-electronic technologies. The study of the boundary evolution of
small blobs of viscous fluid in the presence of an electric field is
crucial for the understanding of ink-jet printing technologies. The
project also has potential biotechnological relevance -- cells
structures and membranes are often modelled as (charged) blobs of very
viscous fluid kept together by surface tension forces on the boundary.
This project will provide an understanding of the mathematics
underlying these important physical models.